Dissertation Research: Environmental Context and Plant Use at San Jacinto 1

Under the direction of Dr. Jeremy Sabloff, Ms. Renee Bonzani will collect data for her doctoral dissertation. She will analyze botanical and associated materials collected during archaeological excavation at the site of San Jacinto 1 in northern Columbia. The site is extremely important because it contains seven culturally distinct layers dated from 6000 to 5700 B.P. (before the present) and these include some of the oldest fiber-tempered pottery known from the New World. The site is also extremely rich in floral remains and these were systematically collected by a flotation technique. What also makes the site important is its location near a savannah margin. Several archaeologists have argued that it was in such ecotone situations that domestication of plants was most likely to have occurred. In her research Ms. Bonzani will attempt both to reconstruct the environment and human use of it through time. To accomplish the former she will study charcoal to determine the tree species represented and also examine insect remains for environmental clues. The latter variable will be addressed through study of food remains themselves. This research is important for several reasons. It has been hypothesized that, based on distribution of modern wild species, several New World crops were domesticated in northern South America. However direct archaeological data is lacking and Ms. Bonzani's research may provide relevant information. By placing the analysis in a broader environmental context the research may also shed light on the causes of this most basic transformation in human subsistence. It will provide information on how humans at technologically simple levels adapt to changing environments and finally contribute to the development of a promising young scientist.